SBIR Phase I: Methods for Embedding User Data into 3D Generative AI Computer-aided-Design Models

The broader/commercial impact of this Small Business Innovation Research (SBIR) Phase I project is the development of a novel Artificial-Intelligence-powered generative design solution that is able to address the needs of industrial and consumer-product manufacturers by exploiting the abundance of data (social media, usage, telemetry) currently available. The proposed framework will create new opportunities for American design and manufacturing firms to better align their products with rapidly evolving consumer needs while reducing the product development challenges that currently exist. It also enables faster cycle times for product development and the near-real-time inclusion of consumer sentiment into product design. The proposed computational methods will translate consumers’ digital insight into new ways to increase the quality of the design concepts and the diversity of consumer perspectives incorporated into AI-generated design concepts, thereby enhancing the designers’ ability to innovate socially aware, consumer-centric products. This project will foster the design of novel, effective, and efficient design models, augment designers’ creativity, promote designer-AI co-creation and bias mitigation, and bridge the gap between consumer-needs discovery, Design for Excellence (DFX) engineering, and social impact. This has ramifications for nearly every industry and application.

This Small Business Innovation Research (SBIR) Phase I project will enable a generational leap in three-dimensional generative design capabilities by integrating qualitative and quantitative information into generative AI models for the efficient production of novel designs. The primary objective is to develop a testable demonstrator for fusing consumer data, data from the Internet of Things (IoT), and Design for Excellence (DFX) engineering specifications into 3D geometric data. The Phase I project will focus on exploring new methods for natural language processing, generative modeling, and data fusion models to integrate consumer data and technical requirements with IoT-based telemetric data, drawing inferences for product design, and building novel semi-supervised models to inject these data inputs into 3D CAD generative models. The project will determine how to directly connect consumer needs with functional performance and study the real-world effectiveness and efficiency gains from the generalizability of 3D generative design. The project will address several challenges of current generative design solutions, including the translation of qualitative and quantitative metadata into concepts, the control and iteration of automatically generated designs, and their seamless integration into manufacturing processes and workflows.